Scholarships in Applied Mathematics

This scholarship program provides financial, academic, and motivational support to enable academically gifted low-income students to receive a bachelor of science degree in mathematics. These students are involved in internship and research opportunities that make them highly attractive to high technology companies. Scholarship recipients also have access to a special mentoring program that supplements the strong support systems that are available to all students at the university.